Thyroid-Immune Interactions: Immune-development and function in Euthyroid, Hypothyroid, and Euthyroid-rendered hyt/hyt mice.

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Erf to obtain preliminary data on the interaction between thyroid and the thymus-based immune system during development in the mouse.